GPS Receivers for Earthquake and Deformation Studies

This award will provide one-half of the funds required to purchase five portable Global Positioning System (GPS) receivers. The GPS receivers are capable of rapid and accurate measurements of distance (e.g., better than centimeter precision over base lines of 100 kilometers) and are important tools in earthquake and other crustal deformation research. The receivers will be acquired by UCLA for their research projects and are also to be contributed to a pool of GPS receivers managed by the university consortium group (UNAVCO), who will provide maintenance and repair for the instruments. UCLA is providing the remaining half of the purchase costs. The instruments will be used in research projects requiring the monitoring of crustal strain related to earthquakes in the Los Angeles basin, the Parkfield-Cholame area, and the Coachella valley.